Numerical Modeling of Strain Histories and Displacement Paths in Compressional Orogens

9805021 Harry This project is an ambitious attempt to model several aspects of the compressional mountain building process, especially the causes of late stage syn- and/or post-orogenic extension, the partitioning of transpressional displacement into strike-slip and dip slip components, and on developing a basis for interpreting rock displacement histories from geologic and geophysical observations. The work involves a series of Finite Element models in first 2-D and then expanded to 3-D followed by testing and application to a number of orogens, including the Ouachita and Brooks Range. Results are expected to help understand structural response to prolonged oblique convergence in orogenesis.